DISSERTATION RESEARCH: Systematics of the Enigmatic Wasp Family Evaniidae

Abstract

Ensign wasps (Hymenoptera: Evaniidae) are colorful,
frequently collected, and recognizable parasites of cockroach eggs,
yet they have been relatively neglected by systematists and
evolutionary ecologists. The main obstacle to future research on
evaniids is the current classification, which is outdated and
inadequate. The intent of this project is to overhaul evaniid
taxonomy, investigate the phylogenetic relationships within the
family and between it and other major Hymenopteran groups, and to use
the relationships to examine several phenomena in an evolutionary
context. In part I, a revision of evaniid genera will be conducted
based on examination of a large body of material already assembled,
and the new classification used to structure a world catalog of
species following examination of type specimens in several major
museums. In part II, phylogenetic relationships among the genera
will be estimated using DNA sequence data from five genes (16S, COI,
28S, LW Rh, and one new gene) along with morphological characters.
In Part III, the relationships between Evaniidae and other
Hymenopteran superfamilies (emphasizing Evanioidea) will be estimated
using DNA sequence data from three genes that have already been
widely used across Hymenoptera (16S, COI and 28S). The results of
Parts I through III will but useful not only for proposing new and
more predictive classifications, but also for investigating the
evolution of oviposition behavior in these wasps, as well as their
biogeographic history.
A promising young systematist will be trained during this
dissertation project, and the results of the work will also have
immediate impact on the larger NSF-funded Assembling the Tree of Life
project on the megadiverse insect order Hymenoptera. The new
generiuc classification for Evaniidae will open up this fascinating
group to further taxonomic and ecological study.